"At Risk" Middle School Young Scholars

9553529 Boes The Colorado School of Mines will initiate a three-week, summer residential, Young Scholars project in mathematics for 30 students entering grades 7 and 8. The project is for at risk middle school students. lEmophasis is on mathematical poroblem sovling and computing in a cooperativelearning environment. LOGO is used in the computing class with exercises including tessellation's, creatiion of natural designs, and to direct logo robots. The youn scholars complete a research project under the supervision of a mentor who is a professional at AT&T Bell Labs. Field trips, career exploratiion, educaiton aspiratiions, and ethics are ain integral part of the program